Conference on Low-Dimensional Topology

This conference will focus on connections between main
approaches to low dimensional topology. Great successes
have come from the classical topological 3-manifold
program (surfaces, foliations and laminations), from the
Ricci flow, Floer homology, and from algebraic invariants
in knot theory and topological field theory. In dimension
4 the Donaldson, Seiberg-Witten, and Oszvath-Szabo
theories have revealed structure of smooth manifolds.
However these different threads remain largely unconnected
and, with the notable exception of geometrization of
3-manifolds, few general structural features have emerged.
This is in contrast with high dimensional topology where
great advances between 1950-1980 revealed deep and
relatively uniform structure dominated by homotopy theory,
bundles, and stable algebra (K and L theory). We hope that
a spirited discussion among a range of experts and new
researchers will help reveal the deep structure of low
dimensions. Can the Ricci flow be coupled to a 2-form or
other gauge-theoretic object on a 4-manifold? Do
nonsingular flows with special dynamics provide a
``singular homology'' analog of the Oszvath-Szabo
``cellular'' Floer homology? Do special metrics associated
to foliations and laminations have implications for the
Ricci flow? Taubes' relation between Seiberg-Witten and
Gromov invariants of symplectic manifolds raised hopes
that geometric representatives for Seiberg-Witten could be
found more generally. So far this has been unsuccessful
but perhaps it is time to revisit the question. We look
forward to interactions among a wide range of experts and
young researchers with fresh viewpoints.

Topology aims to understand the structure of objects that
locally look like the ordinary Euclidean space but whose
global shape may be rather complicated. Work in the early
20th century focused on dimensions 2 and 3, with the
expectation that higher dimensions would be increasingly
complicated and possibly beyond comprehension. Strangely
this was not the case: dimensions above 4 are actually
easier and a deep systematic theory was developed between
1950 and about 1980. For the last 30 years the focus has
returned to dimensions 3 and 4. This has been one of the
most active areas of mathematics, with deep relations to
geometry, analysis, algebra and physics. However a
unifying perspective analogous to the one achieved in
higher dimensions is still lacking. The aim of the
conference is to promote interactions among researchers
working on different aspects of the subject, in hopes that
unifying perspectives will begin to emerge.